Banach Spaces: Theory and Application

ABSTRACT

This proposal contains several open problems in Geometrical Functional Analysis.
Furthermore it is intended to applyconcepts of Functional Analysis to solve
questions in Financial Mathematics, in particularin the theory of option
pricing. A long standing open question in Operator Theory asks whether or
not there exist Banach spaces on which every operator has an invariant subspace.
In order to solve this problem the author intends to use and to extend methods
which led to the construction of spaces on which every operator is a singular
perturbation of a multiple of the identity. In recent years the notion of
asymptotic properties of Banach spaces and their connection to isomorphic
properties gained increasing attention. Such properties are for example the
recently introduced notion of uniform asymptotic convexity and
uniform asymptotic smoothness. The author of this proposal intends
to find sufficient and necessary isomorphic properties admitting
uniform asymptotic convex and smooth renormings. In a joint work with R. Gardner
and A. Koldobsky the author applied concepts of Harmonic Analysis to find
connections between certain extremal properties of convex bodies and higher
derivatives of their section functions. The author intends to explore this path
further to get more inside on other extremal problems. A central question in
Finance is to find fair prices of options contingent to an underlying security.
Many results in this area rely on tools developed in Stochastic Calculus as
well as Functional Analysis. The author intends to investigate the problem of
robustness of option pricing, i.e. the continuous dependence of the option
price on the underlying stock model.

Banach spaces and their geometry are studied since they provide the natural
framework for studying dynamical systems, differential equations, and,
as discovered recently, the pricing of financial assets. The proposed projects
deal with problems on the geometry of Banach spaces, operators between them, and
applications to the mathematical understanding of finance.